Analysis of Non-Watson-Crick Base Paired Telomeric DNA by Scanning Tunneling/Atomic Force Microscopy

This SGER grants will assist Iowa State University in the acquisition of a scanning tunneling/atomic force microscope. The microscope will be utilized to examine the structure of chromosomes. Particular emphasis will be focused on the structure of DNA in the telomeric region of the chromosome where DNA pairing differs from normal Watson-Crick base pairing.